Workshop Support: Proposal for an NSF/NSIC/University Workshop on Applications of MEMS and Related Technologies inInformation Storage Systems, held in 7/91 in Los Angeles, CA

This is a grant for travel support for a workshop to bring together the information storage and microelectromechanical systems (MEMS) communities, to explore applications of MEMS to enhance information storage technologies. Support is provided to enable about ten academic researchers to attend this workshop.